An Analogical Model of Software Effort Estimation

The objective of this project is to develop a new psychological model of expert software effort estimation based on analogy and case-based reasoning. The research activities include psychological studies, computer modeling and validation, and simulation experiments to formulate an accurate model of analogical reasoning in the domain of effort estimation. The results of this research will provide major insights into how expert effort estimators perform their task and how to improve the effort estimation process. The long term goal is to weave together the symbolic methods of the expert with analytical methods in order to provide more understandable and more accurate estimates of project effort.